Conference: The 10th SIAM Central States Section Annual Meeting at the University of Arkansas, October 11-12, 2025

The 10th Annual Meeting of the Society for Industrial and Applied Mathematics Central States Section (SIAM-CSS) will be held at the University of Arkansas, Fayetteville, on October 11–12, 2025. By convening applied and computational mathematicians from Arkansas, Colorado, Iowa, Kansas, Mississippi, Missouri, Nebraska, Oklahoma, and beyond, the meeting promotes the progress of science and strengthens regional and national research capacity. Participants will share cutting-edge advances, receive professional mentoring, and form collaborations that translate mathematical innovation into technological, biomedical, and economic benefits.

T​he SIAM-CSS conference will feature plenary lectures by distinguished scientists and a series of minisymposia spanning numerical analysis, partial differential equations, optimization, scientific computing, data-driven modeling, and interdisciplinary applications such as engineering and life sciences, to name just a few. Interactive poster sessions will showcase emerging methods such as structure-preserving algorithms, high-performance computing strategies, and machine-learning–enhanced simulation. By disseminating new theories, algorithms, and open-source software, the meeting will accelerate discovery and identify research directions of strategic importance to the computational and applied mathematics community. The conference website is https://siam.uark.edu/.